Integrated Laboratory Courses in Recombinant DNA Technology and Molecular Genetics

9351600 Zilinskas The project focuses on two core courses of the Biotechnology Curriculum, Methods in Recombinant DNA Technology and Molecular Genetics Laboratory. The course is taken by students in the expanding Biotechnology Curriculum, as well as students in related disciplines, and provides the opportunity for hands-on experience with the latest technology in this field. ***y